Purchase of a Mass Spectrometer with Accessories

Mass spectral techniques such as Electron Impact (EI), Chemical Ionization (CI) and Fast Atom Bombardment (FAB) are used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The acquisition of instrumentation capable of carrying out these state-of-the-art techniques is essential for the prosecution of frontier research in several fields of chemistry and biology. The purchase of an analytical high resolution mass spectrometer will be facilitated by support from the Chemistry Shared Instrumentation Program and the Biological Instrumentation Program. The areas of chemistry and biology that will be enhanced include: 1) Determination of Organic Structures and Reaction Mechanisms 2) Reaction Pathways in Polynuclear Metal Carbonyls 3) Stereoselective Synthesis and Characterization of Natural Products 4) Auto-oxidation of Cobalt Dioxygen Complexes 5) Mass Spectrometric Probes of Enzyme Structures and Mechanisms 6) Studies on the Dissociation Dynamics of Large Molecules 7) Applications of Mass Spectrometry to Biochemistry and Toxicology 8) Model Systems for Biological Oxidation Reactions 9) Characterization of Biologically Important Molecules